Rotating Nonlinear Flows in Normal and Quantum Fluids

Non-Technical:

This research award builds on unique expertize and experimental
facilities at the University of Maryland to discover the properties of
rotating fluid flow in water and liquid helium. Turbulence in similar
flows is important in engineering (in jet engines and pumps), stars, and
in understanding the Earth's atmosphere and outer core. This project
will also explore a strange type of motion at low temperature known as superfluid
vortex turbulence. The overall goal of the research is to advance our
understanding of rotating fluid turbulence. The mentoring and training of
young researchers, as undergraduate and graduate students, is a critical
part of this project. They will obtain professional skills as
researchers, preparing them for advancement as independent scientists to
work in industry, national laboratories, or in research universities.

Technical:

This research award builds on unique experience and experimental
facilities at the University of Maryland to probe shear driven flows in
the presence of rapid rotation in Newtonian fluids and superfluids.
Turbulent flows with global rotation arise in engineering, astrophysical,
and geophysical situations. This research funding allows work on
directly visualizing superfluid vortex turbulence, in addition to
experiments in more easily diagnosable water flows. The overall goal of
the research is to advance our understanding of a broad class of
phenomena involving the interaction of nonlinearity, rotation and, in
part, quantum fluids. The mentoring and training of young researchers, as
undergraduate and graduate students, is a critical part of this project.
They will obtain professional skills as researchers, preparing them for
advancement as independent scientists.